Brain Dopamine and Behavioral Regulation in a Novel Cost/Benefit Paradigm

The proposed study will investigate how dopamine, an important neurotransmitter in the brain, is involved in the regulation of motivated behavior. The proposed studies will investigate which brain areas are involved in this behavior, and will study the effects of different drugs in this paradigm. These results will increase our knowledge of how dopamine is involved in motor processes that are related to motivation.